Undergraduate Laboratory: Fundamentals and Design of Optical Systems

The university is creating a joint Electrical Engineering/Physics optics laboratory consisting of (1) the fundamentals of optics and (2) optical system design and engineering. The objective of the lab center is to educate undergraduate students in the fundamentals of optics; in interdisciplinary problem-solving; in design, analysis, and manufacturing issues; in handling and using optics in a variety of applications; and in nontechnical skills, such as written and oral communications. In the first semester, students learn fundamental optical techniques. The second semester focuses on more sophisticated procedures, such as holography, four-wave mixing, and advanced fiber optics. The class is divided into teams, and each team is assigned a design problem. Written technical reports, in professional format, are required, as are formal presentations. The lab complements an optics course sequence and is used for demonstrations to and active participation by K-12 students in optics experiments.